1986 Gordon Research Conference on Catalysis

This award provides partial support for the Gordon Research Conference on Catalysis. The funds will be used to support speakers and attendees to the conference. The conference is the most significant meeting on catalysis held on an annual basis, and is a forum for informal exchanges.